A Charged Coupled Device (CCD) Controller/Signal Processor Based on a Digital Signal Processor

A new type of analog signal processor module for digitizing the output of charge-coupled devices (CCDs) will be built. The unit is designed around a very fast 16-bit analog-to-digital converter and a digital signal processor (DSP) integrated circuit. By taking multiple samples of the waveform at the output of the CCD it will be possible to increase the dynamic range of the readout and to apply optimal filtering techniques to lower the readout noise. The DSP will store the samples and numerically process them to derive a single number to send to the host computer, thereby relieving the load on the host. The DSP will also generate the clocking waveforms to drive the CCD, as well as carry out other time-critical tasks such as the operation of motors and shutters. The new electronic system is simpler than previous designs, and is also capable of high speed readouts of the CCD for field finding or high-speed photometry. We plan to experiment with various methods for improving readout noise and large signal handling capabilities using several CCDs. The project is expected to last about two years and involve, in addition to the Principal Investigator, an electrical engineer, an electronics technician, and a graduate student.